Natural Low-Frequency Variability in the Wind-Driven Ocean Circulation

Cessi 9618126 A hierarchy of quasi-geostrophic (QG) models (barotropic, two-layer baroclinic, baroclinic with feedback between sea surface temperature and wind stress) will be used to examine the time-dependence and stability of a non-linear system forced by steady winds. Of particular interest is the degree of intrinsic long-term variability as a function of forcing to dissipation ratio and in understanding how sea surface temperature/wind stress feedbacks produce new modes of low- frequency variability.